Low Temperature Oxidation Catalysts

This award is to support Phase I research to determine the feasibility of using a catalyst to permit oxidation of organic compounds of pollutional significance at lower temperatures than are now necessary and thus reduce the emission of volatile organic compounds into the environment. This project involves formulation of a range of catalysts and determination of their activity as a function of temperature in oxidation of organic compounds that are representative of aromatics, alcohols, ketones, aldehydes and halocarbons. The proposal leading to this award was submitted in response to NSF 91-20, Small Business Innovation Research (SBIR). Results of this research are expected to determine the technical feasibility of the proposed concept and the basis for potential continuation of the research into a subsequent Phase II. The results have potential applicability to incineration of wastes, process improvement for production of ammonia and to the control of pollutants in automotive exhaust.